EPSCoR Research Fellows: NSF: Identifying Active Microorganisms During Permafrost Thaw Using Quantitative Stable Isotope Probing

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant Professor and training for a graduate student at the University of Alaska Fairbanks. This work is conducted in collaboration with Dr. Schwartz at Northern Arizona University. Through the fellowship, the PI will develop molecular biology tools to study microorganisms in permafrost that become active upon thaw. Permafrost, soil that has remained frozen for at least two consecutive years, stores twice as much carbon as the atmosphere. These frozen soils also contain microorganisms with very low or no activity, but when thawed, their activity and ability to use previously frozen carbon remain unknown. The methods developed will enable the PI to identify these microorganisms and assess their activity following thaw events. In addition, this project will train STEM graduate and undergraduate researchers and help to better understand permafrost-affected landscapes, which are experiencing rapid changes with unknown biological and ecosystem impacts.

This project will develop and apply quantitative stable isotope probing methods to assess active microbial populations in thawing permafrost using amplicon- and metagenome-based techniques. Specifically, the research will use quantitative stable isotope probing to 1) develop methods for identifying active microbial populations in permafrost, 2) characterize the composition of active microbial populations in permafrost from samples across a range of ages and 3) explore methods for quantifying the metabolic potential of permafrost bacterial populations. Understanding the diversity and activity of these microbial communities after thaw events will help address the knowledge gaps of these important arctic and boreal ecosystems. This project will enhance research capacity at the University of Alaska Fairbanks and support the training of graduate and undergraduate students through hands-on research and workshops. In addition to studying permafrost thaw, the methods developed will also be used to investigate microbial communities and their activity following other disturbances, such as wildfires.This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows, which supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.